Enhancement of the Community College General Chemistry, Analytical Chemistry and Organic Chemistry Curricula with GC-MS

This project enhances the chemistry curricula by incorporating the theory and practice of gas chromatograph/mass spectrometer (GC/MS) analysis in the general chemistry, analytical chemistry, and organic chemistry courses. The college has previously had access to outdated GC instrumentation but no access to MS instrumentation of any type. Incorporating a GC/MS instrument enhances the curricula by reinforcing lecture topics, upgrading existing experiments, and allowing the introduction of new experiments. The new GC/MS is the Hewlett-Packard G1800A GCD system. This state-of-the-art instrumentation greatly benefits the students with the opportunity to gain hands-on experience in the operation of an instrument that is widely used in university, government, and industrial laboratories. Lectures in the respective courses introduce students to various levels of complexity in regard to the theory of GC/MS. The students gain experience in sample preparation, analyzing data, and fundamental operations of the instrument. *